Probability Design of Diaphragms and Intercomponent Connection Systems in Light Frame Wood Buildings

Although more light-frame wood buildings are erected in the United States than any other type of construction, their design is oversimplified and does not reflect modern developments in structural analysis and wood science. The proposed research is aimed at developing both a prototype of methodology for a probability-based design and the data needed for application of the methodology to typical (baseline) diaphragms, bending components, and connections among components. The research plan calls for using the probability density functions for material and joint properties to simulate samples of systems of components and component connections. The simulated systems will be analyzed to obtain the parameters limiting performance, such as ultimate load and critical deflections. Thus, sets of probability density functions will be generated that can be compared to external loading spectra for assessing the probability of exceeding design limits. Results will be incorporated into the design methodology developed as another task of the proposed research. The data will be useful in calibrating the code for future wood building systems. The methodology will be presented in a form ready for evaluation by practicing engineers and builders. The research to be conducted is a cooperative effort of research teams at Oregon State University (OSU) and Washington State University (WSU). The principal investigators of the two teams have a history of successful cooperation in the past four years and are currently coordinating parallel investigations that were awarded as cooperative projects by the National Science Foundation.